SGER: Digital Government: Preliminary Evaluation of Process Formalisms for Defining Government Processes

EIA-0223599
Leon J. Osterweil
Norman Sondeimer
University of Massachusetts Amherst

SGER: Digital Government: Preliminary Evaluation of Process Formulisms for Defining Government Processes

Much of the daily operation of government may be thought of as the faithful and precise execution of prescribed processes (law, rules, regulation). This small grant will explore the potential for the application of a special purpose computer language (LittleJIL) to aid in ensuring the accuracy and efficiency of government processes, such as the issuing of licenses. This preliminary grant will begin the building of a partnership between the PI and the Commonwealth of Massachusetts in investigating the potential of this novel idea.